Geochemistry of Drill Cores from the Scientific Observation Hole: Implications for the Evolution of Hawaiian Volcanoes

The primary goals of this study are: (1) to examine in detail the long-term petrologic, geochemical, and isotopic evolution of Kilauea and (2) to evaluate the nature of isotopic and geochemical heterogeneities in the Hawaiian plume source. The SOH core presents a unique opportunity to document the magmatic history of the world's most active volcano and to examine in detail the geochemical evolution of a Hawaiian shield volcano over a significant portion of its eruptive activity. Furthermore, Sr and Pb isotopic systematics for Kilauea indicate this volcano best defines one end-member in the plume source of Hawaiian lavas. Therefore, results from this study should yield important new insights into the nature of geochemical heterogeneity in the Hawaiian mantle plume.